Mathematical Sciences: Analysis and Geometry on Nilpotent Lie Groups

This project is mathematical research funded under a Research in Undergraduate Institutions award. The subject matter is Lie groups, which are relevant to many areas of mathematics because of their role in embodying the symmetries of various systems, be they physical, geometrical, or algebraic. More specifically, Professors Ratcliff and Benson will work on analysis and differential geometry of nilpotent Lie groups. They hope to classify the Gelfand pairs that arise from actions of compact groups on nilpotent Lie groups. Professor Ratcliff plans to develop a discrete decomposition of distribution spaces and operators on the Heisenberg group. Professor Benson is planning to explore symplectic structures on nilmanifolds and Kaehler structures on solvmanifolds.